Engineering Research Equipment Grant: Biaxial Materials Testing System

A biaxial material testing system will be purchased for performing experimental research in plasticity and fracture of materials. The equipment system is essential for the completion of the thermal relaxation testing in polymeric and metallic materials. The biaxial testing system will enhance the experimental verification capability for material relaxation analysis.